Expanded Capabilities in Molecular/Cellular Biology

Curriculum changes to emphasize modern experimental biology will be supported by the purchase of an ultracentrifuge, high- speed centrifuge, liquid scintillation counter, horizontal gel apparatus and other equipment to support instruction in recombinant DNA technology. This will facilitate the addition of a laboratory course in advanced molecular biology that will emphasize recent experimental advances in the understanding of the structure, function, and regulation of genes and their products. Many modern techniques, such as radiolabelling, density gradient centrifugation, ultracentrifugation, electrophoresis, and recombinant DNA methodology will be applied in the laboratory. In addition, improvements will be made in the introductory cell/molecular laboratory, which is part of the "core curriculum," and capabilities for student research will be expanded. The college will provide 50% matching funds.